Forces and Forms of Change in Doctoral Education Worldwide II: A Research Synthesis Workshop

The proposal seeks to support a synthesis workshop to address a critical issue facing STEM graduate education - the forces and forms of change in doctoral education, worldwide. The synthesis project is part of a multi-year project to establish an international network of leaders in doctoral education research and innovation to synthesize existing research and knowledge in five critical dimensions of globalization in doctoral education. They are: (1) the impacts of globalization in labor markets on doctoral education; (2) the problem of tensions between national interests and globalized science; (3) the competencies of PhD holders worldwide; (4) the usefulness of existing data for evaluation of doctoral education cross-nationally, and (5) the problem of evaluation and quality assurance as doctoral education globalizes.